Synthesis of Ultrafine Particles of Nanosize Reinforced Composites

This project investigates the combustion synthesis and wet-chemical synthesis methods for producing ultrafine alloy particles in the form of nanosize reinforced in situ composites. Emphasis will be given to the production of Ti/TiB2 composites, although the processes employed are applicable to a wide range of intermetallics. The methodology for combustion synthesis involves reacting Na with TiCl4 and BCI3 to produce a Ti/TiB2 alloy. A flow reactor will be constructed which simulate the processes that would occur in a production-scale system, but also allow for a detailed investigation of the particle formation, growth and cooling processes. Measurements will be performed by a combination of probe sampling and light scattering techniques. The wet-chemical approach will be a low- temperature, solution-phase technique using metalorganic precursors and intermediates. Inverse micelles and polymeric stabilizers will be used to control the syntheses, sizes, and stabilities of the nanocrystals. The microstructural stability and mechanical properties of the materials obtained by consolidation of the nanosize particles produced by the two processes outlined above will be also studied. In synthesizing these alloys a new class of materials is expected that will exhibit high strength, high elastic modulus, high toughness and impact properties, low sensitivity to temperature chance or thermal shock, high surface durability and low sensitivity to flaws.